Mathematical Sciences: Kac-Moody Lie Algebras and Physics Conference

This conference on Kac-Moody algebras will be held December 13 - 17, 1988 at North Carolina State University. It is for experts in the field as well as researchers in related areas of mathematics and mathematical physics. The conference is partly expository in nature, with Professors Kac and Moody giving a series of lectures on the mathematical aspects of Kac-Moody algebras. In addition, David Olive will lecture on the physical application of Kac-Moody algebras, and there will be technical lectures by other participants. The theory of Kac-Moody algebras began twenty years ago with the seminal work of Kac and Moody, and has connections with diverse areas of mathematics, including number theory, combinatorics, topology, completely integral systems, and particle physics.